CAREER: Homology and Geometry of Groups

Abstract for DMS - 0132514

In the past the investigator developed techniques to study
Gromov hyperbolic groups. There are several applications of those
techniques in topology, geometry, algebra, analysis. In particular,
hyperbolic groups were characterized by bounded cohomology, extending
results my M. Gromov. This characterization was used by A. Connes and
H. Moscovici for a proof of the Novikov conjecture for hyperbolic groups.
S. Gersten provided several descriptions of hyperbolicity in terms of
various (co)homology theories, and later the investigator made
contributions in that direction. Recently, Guoliang Yu and
the investigator were able to prove the Baum-Connes conjecture
for hyperbolic groups and their subgroups. The techniques will be further
developed to address these and other directions. For example,
(co)homological descriptions of relative hyperbolicity will be studied.
As another application, the conformal and other geometric structures
on hyperbolic groups will be constructed. It is the investigator's
hope that this will lead, in particular, to a better understanding
of open conjectures in 3-dimensional topology.

It is an important and interesting task to investigate shapes
of spaces, in particular of the one in which we live. Geometry studies
spaces of various shapes. Group theory studies groups, that is,
sets of symmetries of spaces. Geometric group theory provides
links between spaces and groups. Every group has an orbit (!) in some
space (!). The orbit is only a part of the space, but once something
is known about the the group, geometric group theory provides information
not only about the orbit, but about the whole space as well. Tools from
several areas of mathematics are used for that. The research part of this
proposal is to develop and use those tools. Another part of the proposal
is organizing and supporting the G^3 = "Geometric group theory on the gulf
coast conference" that would allow exchange of ideas among mathematicians
of various research interests.